Conference on the New Economics of Science at Notre Dame, Indiana, March 1997

The impression that science is undergoing a new phase of reorganization and retrenchment is widespread, and in response there have been numerous appeals to a revived "economics of science." Many commentators and analysts do not recognize that there have been three different theoretical approaches to an economics of science, dating from the 1930s, the 1950s, and a Newer school which has only now been consolidating its position. Thus, just as philosophers, science policy experts and scientists themselves have been calling for a rationalization and reorganization of science along economic principles, or else criticizing economists for their imperialistic pretensions, there has been very little consensus over what a theory of the "marketplace of ideas" would entail. The purpose of this conference is to bring together the major representatives of each vintage of the economics of science, along with science policy experts, sociologists and philosophers of science, and some representative scientists concerned with these issues, in order to come to some agreement as to what might be useful in notions of competition, accountability and the invisible hand when applied to the process of scientific inquiry. One half of the conference will be devoted to theoretical issues, such as the treatment of science as a public good, the application of strategic game theory to the "industrial organization" of science, and the relevant traditions of the treatment of knowledge in economic theory and their bearing upon the portrayal of science; while the other half will be concerned with more applied policy issues, such as the impact of imposing accountability upon the structure of science, evidence of the decline of a Mertonian "culture of credit" in increasing hierarchy and division of labor, and the economics of the publication and dissemination of findings. The major aim of the conference is to advance and consolidate the emerging field of the economics of science by disseminating and evaluating the various approaches in a systematic and comprehensive manner.